Research Training Group in Development of the Nervous System

This award provides funds for the establishment of a Research Training Group in Development of the Nervous System. The faculty group is a mixture of outstanding senior and junior investigators who come from a variety of disciplinary backgrounds and work with a variety of organisms, but share a common interest in development of the nervous system. The research programs in which trainees will participate are aimed at three problems central to the development of all nervous systems: neurogenesis, axonal navigation, and synaptogenesis. The funds will provide stipends for graduate students and postdoctoral fellows, will support research participation by undergraduate students, will defray part of the cost of the trainees' research and will enable the trainees to attend scientific meetings. In addition, funds will be used to purchase specialized research equipment to be used by trainees, and to bring experts from other research and academic institutions to aid in a summer laboratory and lecture course for trainees. In recent years, remarkable advances in the use of genetics, biochemistry, and microscopy have led to significant new knowledge about the development of multicellular organisms. Despite this, much remains to be learned about development and, in particular, about the mechanisms of key problems posed by the development of many different tissues and structures. These include the differentiation of cell types, the basis of cell-cell recognition, and the migration of cells during development. In this respect, some of the most exciting opportunities and, at the same time, most difficult challenges are presented by developmental studies of animal nervous systems, which typically contain a large variety of cell types and extend throughout the animal. Successful research in this area requires a mixture of diverse intellectual and experimental skills not often taught in traditional neuroscience programs. This award will provide funds for the training of young neuroscientists who have the multiple skill needed to attack one of the last great frontiers of modern biology.